CIF: Medium: Modeling, Analysis, and Code Design for Portable Wireless Device Transmitters Subject to an Electromagnetic Exposure Constraint

Portable wireless devices sold around the world number in the billions, and
they are used daily because of their ability to provide connectivity by
integrating processing power, touch screens, cameras, and motion sensors
with multiple radios, many of which can run simultaneously. Portable
wireless devices used in close proximity to the human body have transmitter
power constraints that are dictated largely by regulatory limits on a form
of electromagnetic exposure called ``specific absorption rate'' (SAR).
SAR, measured in Watts per kilogram, is a measure of the rate of
electromagnetic energy absorption by the body. Many portable wireless
devices sold today operate near the accepted human SAR limit. This
research examines how multiple transmitters on a portable wireless device
can be modeled, analyzed, and used while subject to a SAR constraint. The
work looks at how to model the constraint, and how to realize the
reliability and high data-rate advantages of multiple antennas subject to
the constraint.

Because portable devices are generally small, transmitters will be
physically close to one another and couple electromagnetically. Hence, the
research requires a blended effort in three distinct areas: (i)
electromagnetics and near-field exposure modeling with multiple
transmitters, (ii) wireless communication system far-field
information-theoretic performance evaluation with a near-field SAR
constraint, (iii) the design of SAR codes for optimum performance. Code
performance will be determined by simulation and by laboratory evaluation
with microwave equipment for near-field SAR and far-field error-rate
measurements.